International Collaborative Efforts In Materials Handling Research and Education

This award provides suppplemental funding to Rensselaer Polytechnic Institute, Sunderesh Heragu, Principla Investigator, for the support of internationa collaborative efforts in materials handling research and education. this is a supplemental activity to the Combined research-Curriculum Development (CRCD) project entitled, "Multimedia Based Tools for integration of Technology, Analysis and Design in Materials Handling Education."